Space Weather: Using L1 Observations to Predict Solar Wind Conditions at Earth

The investigators will characterize differences between solar wind conditions observed at the inner Lagrange point (L1), approximately 1.6 million kilometers sunward of the Earth and the conditions at Earth 30-60 minutes later when the "same" plasma arrives. The approach is to expand on previous work in which they developed empirical relations for the probability that solar wind events at L1 appear in a similar form at Earth. The new effort is to incorporate magnetic field data to determine whether magnetic field conditions affect plasma correlations.